Linfield College Connection to NSFNET

Linfield College is establishing a connection to NSFNET via a 56,000 bits per second line through the NorthWestNet mid-level network. The connection enables the school's faculty and students to communicate and collaborate with the national scientific and educational community, and to access network resources. Areas of science and education addressed over the Internet by Linfield include biology, mathematics, physics, chemistry and computer science. The library also benefits from access to other libraries and data bases. This award funds part of the costs for two years.***